Global Gravitational Anomalies in Chern-Simons-Witten Theories

The focus of the proposed work is to study global gravitational anomalies in Chern-Simons-Witten theories. Topics include (1) the investigation of mapping class groups; (2) a study of torsion classes; (3) algebraic determination and/or detection of anomalies. ***